EAGER: Enabling collaboration in the creation of scientific databases from the published literature

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The aim of the proposed research is to explore cyber-infrastructure that will enable and promote large scale collaboration in building, maintaining, and using (towards discovery) scientific knowledge bases that are grounded in published literature. Although the focus will be on the Biology domain and articles and abstracts available through PubMed, project will develop infrastructure that can be adapted to other scientific domains such as archaeology, material science and ecology.

Project will develop a web-based platform where automated named entity recognition, automated named entity identification, and automated relation
extraction are used only as boot-strap steps and voluntary collaboration is used for making corrections, adding missing facts to the database and in maintaining the database.